Midwest Probability Colloquium

9974267
Mitro

The Midwest Probability Colloquium will be held at the University of Cincinnati on October 22 and 23, 1999. This colloquium series has become an important regional meeting. It attracts participants primarily from the greater Midwest probability community. It has a strong tradition of encouraging graduate students and other young investigators to attend and interact with specialists.